CRI: Infrastructure for Multi-Agent Decision-Making Research

Abstract
Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: Infrastructure for Multi-Agent Decision-Making Research
Proposal: CNS 0453923
PI: Stuart M. Shieber
Institution: Harvard University

Project: This project will support the development and distribution of community resource software supporting research and education in multi-agent decision-making. The PI's will expand a research for use in research studies, modeling, and strategy development on multi-agent tasks. The testbed is based on a parameterized family of games called Colored Trails (CT) in which agents as individuals or teams make decisions about resource allocation. The community resource software will provide more realistic decision making settings than previously available systems, will facilitate analysis of decision making strategies of individuals, teams, and computer agents or combinations of these and enable development and testing of decision-making strategies. Broader impacts include facilitating research in multi-agents systems and machine learning, supporting new groups in research and education in these areas, development of research and education materials, support for REU students, and participation in diversity efforts.